Integration of Multidisciplinary Computer-based Problem Solving into the Undergraduate Science Curriculum: A Model for Cross-Curricular Technology Transfer

This project is to create a multidisciplinary interactive technology-based problem-solving model for cross-curricular technology transfer. The project objectives are:
1. incorporate meaningful technology-based problem solving applications into all science courses by developing innovative curricula, adapting existing resources, and integrating new technologies,
2. target unserved and underserved populations, including women and minorities for science success,
3. promote multidisciplinary collaborations to strengthen interdisciplinary problem solving as a foundation for new program development,
4. create valuable outreach programs for updating teachers' and faculty's technological enhancement, and
5. update skills for non-professional individuals, thereby enabling them to integrate into technical positions in emerging industries.

The creation of a multifunctional computer laboratory for intra-and inter-curricular studies is to provide the environment for a faculty to adapt commercially available software, computer-based laboratory interfaces, internet databases, and digital imaging techniques to promote students' exploration, visualization, and creative analysis of complex scientific concepts. Implementation of advanced computer applications are to provide a broader range of strategies to teach creative problem solving. Virtual applications in Astronomy, Biology, Chemistry, Geoscience, and Physics are expected to peak the interest of more students, inspiring some to pursue careers in basic and applied science.